US-China Cooperative Research: Atomic Processes In Muon- Catalyzed Fusion

This is a two-year collaborative research project between Dr. Chii Dong Lin, Kansas State University and Professors Bao Cheng-Guang, Zhongshan University and Liu Xian-Hui, Institute of High Energy Physics, Academia Sinica, to study atomic fusion. The atomic fusion processes are important in the study of high energy physics. The data derived from this study can be useful in energy development. The U. S. P.I. is an expert in the field of hyperspherical coordinates research, while the Chinese collaborators have developed methods for dealing with hyperspherical harmonic functions. Both techniques are needed for understanding atomic fusion. The research is mutually beneficial and can advance this field of research.